Applications and Investigation of Formalism for Resource-Bounded Argument

This research is aimed at studying various aspects of resource- bounded defeasible reasoning and the applicability of the formalism. The scope of this investigation includes 1. defeasible reasoning about resource-bounded decisions; 2. control of resource-bounded argument; 3. case-based defeasible reasoning in law and projection from small samples; 4. applications of existing statistical defeasible reasoning, specifically, to existing HyperText and Diabetes projects; and 5. mathematics and philosophy of defeasible reasoning. The research is also expected to have an impact on such related work as non-monotonic reasoning and logic programming.